Feasibility of Spoken Letter Recognition on a VLSI Neurocomputer

This award will provide Phase I SBIR funding for demonstration of the feasibility of speech recognition on a VLSI neurocomputer. The speech recognition system will perform speaker-independent recognition of spoken English letters. The current implementation of the system, now running in the context of a directory assistance application on a Sun4 workstation, classifies isolated letters of the English alphabet at 96% accuracy - the best reported performance of any system on this difficult task. The high level of accuracy is obtained by training neural networks to make the important classification decisions at each level of the system. Neural networks are used to track pitch, to locate speech boundaries, and to classify letters. The goal of the Phase I research is to implement a complete recognition system in which neural network classification is performed in real time on the Adaptive Solutions board. The research consists of: (a) experiments needed to modify the current recognition system to meet the computational requirements of the board; (b) implementing the classification modules on the neurocomputer; and (c) training the neural classifiers.***